QSB: Modeling and Design of Gene Switching Networks for Optimal Control of PHA nanostructures

The design of genetic networks to control cellular function represents an exciting and promising path for utilizing results from functional genomics to control cellular physiology. However, before constructing complex genetic architectures comprised of multiple, interconnected gene-switching blocks, it is of great significance to investigate the dynamic coupling between simple, isolated genetic networks, cellular metabolism and product formation.

The Principal Investigators (PIs) will address this exciting challenge through the development, analysis and simulation of a comprehensive mathematical modeling framework. The PIs will use polyhydroxyalkanoate (PHA) block copolymer formation in recombinant E.coli cultures as a model system due to two reasons. First, the controlled addition of different monomers for the bacterial production of block copolymers inherently requires transient switching between different metabolic pathways, thus providing a natural testbed for the applicability of gene-switching networks. Second, the control of PHA structure is in itself important, since it will lead to biodegradable products with novel properties and, consequently, a wealth of potential applications in many diverse areas. The proposed mathematical modeling framework will be used in conjunction with exhaustive experimental studies to extract model parameter values that are impossible to obtain through direct experimentation.